Cognitive Strategies: Origins, and Personality Functioning and Change

Individuals' cognitive strategies for controlling anxiety, monitoring progress towards goals, and protecting self-esteem have been implicated as important to personality adjustment in many arenas of social life. A strategy of defensive pessimism-- characterized by a great deal of cognitive effort at "playing through" events before they occur and preparing for low- probability "worst-case outcomes" -- provides an interesting contrast with strategic optimism in which the best is assumed until proven otherwise, and self-esteem is protected only when necessary after the fact. Both strategies tend to ensure successful achievement, though in very different ways, and with different consequences for daily life stress and health symptomalogy, social relationships, and personal satisfaction and motivation. The present work will investigate the self- regulatory processes underlying these strategies, as well as the associated costs and benefits for personality functioning across different life situations and over time; utilizing a variety of techniques including daily diaries, experience-sampling methods, family interviews, and experimental studies of task choice and persistence at tasks. Comparisons with other common strategic approaches to personally-risky situations (e.g., self- handicapping) will be made, and the relative costs and benefits of these strategies will be assessed across a range of college and non-college student populations and environments. The investigators assume that individuals can shift their strategies to fit the special demands of a changing environment, and analyses over time and in different life environments will test this basic premise of personality mutability. The Principal Investigator is well-known as a highly productive scholar.